Space Weather Domain Modularization for a Community Coordinated Modeling Center (CCMC) Architecture

The purpose of this project is to produce computer tools for the Community Coordinated Modeling Center (CCMC). It is the development of an enabling technology that will facilitate the use of the CCMC for space weather research. Industry standard message passing techniques will be used to allow different models to be coupled together. Similar tools will provide access to archive and real-time data. In addition, easy-to-use graphical display systems will be developed. This computer architecture will facilitate the transition of research models to operational models, which is one of the main purposes of the CCMC.